MRI: Acquisition of a High-Resolution Micro-Computed Tomography System with Large Sample Capacity

Morgan
0521255
The main thrust of this proposal is to acquire a high-resolution micro-computed tomography with large sample capacity for imaging the three-dimensional structural assessment of biomaterials. The research plan includes the study of morphology and architecture in tissues and organs, deformation and failure processes in structures, and bone repair, using a requested high-resolution computed tomography system. The requested instrument will be used for many projects by researchers from different departments. The equipment proposed for acquisition will benefit a diverse group of research projects, including morphology and architecture in tissues and organs, deformation and failure processes in structures, and bone repair. A management plan to maintain and share the equipment is also provided.